Fluorescence Spectroscopy in the Undergraduate Program at Regis University

The objective of the proposed project is to introduce the use of molecular fluorescence technique into all levels of the chemistry program at Regis College. The solicited fluorescence spectrometer will strengthen the laboratory courses in Analytical, Physical and Biochemistry. It will also contribute to our plans to integrate Physical Chemistry with Instrumental Analysis. The proposed system will be primarily used for identification, analysis, study of molecular dynamics and conformation of biomolecules. In Addition, it will advance several ongoing biochemical research projects in which undergraduate students are active participants. Several new experiments have been proposed as independent projects. The requested instrument will enhance student experience in consumer and environmental chemistry courses generally taken by non-science majors. Given our small class size at Regis, each student in every advanced chemistry course will benefit from hands-on experience with the fluorescence spectrometer.